ITR/IM/AP: Websim 3D - A web-based system for generation, storage and dissemnination of earthquake ground motion simulations.

0113377
Olsen

This is a project to develop and implement a web-based "community model" (websim3D) for the generation, storage, and dissemination of ground motion simulation results. Websim3D will initially be based on the nine long-period finite-difference (FD) earthquake scenario simulations carried out for the Los Angeles basin by the P.I. The user-friendly access to the simulated ground motion time histories will allow seismologists and engineers to analyze the broadband synthetic ground motions for desired earthquake scenarios at sites of interest.

The P.I. is regarded as an authority on simulation of ground-motion for southern California earthquakes using the Southern California Earthquake Center (SCEC) Community 3-D seismic-velocity model. His prior work set the standard for this type of simulation. Getting state-of-the-art ground-motion simulations for scenario earthquakes to the scientific and engineering community is a high priority, especially for the Los Angeles region of southern California, which contains 25% of the nation's seismic risk.
***